In Situ Investigation of Wear of Materials by a Real-Time Laser Speckle Technique

The goal of this research is to develop and demonstrate a new real-time laser technique for the in-situ analysis of deformation at sliding conacts. This special laser technique produces multiple interference patterns appears as fine, randomly distributed "speckles" which serve to fingerprint the positions of all points on the surface. The movement of such points by plastic deformation is then recorded by simple photographic methods, and serves as detection of material flow on the contact surface.